Classroom Assessment in Mathematics, Grades 4-12: Development of a Three-stage Professional Development Program

9819914
VACC

The University of North Carolina at Greensboro will develop and test, over a five-year period, a professional development program in assessment in mathematics for teachers in grades 4 to 12. A total of seventy-two hours of professional development will be delivered through three workshops: Assessment Literacy, Developing Classroom Assessment Skills, and Honing Classroom Assessment Skills, as well as classroom follow-up. A writing team composed mostly of classroom teachers will develop the workshop materials. The Assessment Committee of the Association of State Supervisors of Mathematics will review the completed materials. Workshop leaders will be selected and trained to pilot the materials in middle and high schools in North Carolina, South Carolina and Virginia. The materials will be disseminated through a series of conferences publicized through the Association of State Supervisors of Mathematics.